Development of a Computer Engineering Design Laboratory

The objective of this project is to develop a lab in which students can design, test and debug microprocessor based systems. Six 8086 microprocessor development systems are requested. Each development system consist of an in circuit emulator, development software and a PC. By mimicking the behavior of an 8086 microprocessor, the emulators bridge the gap between a simulation of the hardware prototype and the actual prototype. They allow software to be developed and tested before the prototype hardware has been completely built. The developments of software allows the students to monitor their systems at three levels. At the highest level symbolic debugging of source "C" programs is provided, while the intermediate level allows assembly language debugging. At the lowest level the emulators provide the capability to monitor the status of logic signals in the prototype.